CAREER: Spatial Models and Algorithms for Sensor Networks

PROPOSAL: 0347400
INSTITUTION: U of Texas Austin
PRINCIPAL INVESTIGATOR: Shakkottai, Sanjay
TITLE: CAREER: Spatial Models and Algorithms for Sensor Networks

From everyday tasks like buying groceries, to tracking chemical
pollutants through a riverbed, sensor network technology will
transform the way we understand and interact with the physical
world. Such networks will support communications over thousands of
sensor nodes -- communications of a scale not seen in today's
networks.

Motivated by the physics of gases, where the behavior of individual
atoms are inconsequential in order to understand macroscopic behavior
such as pressure or temperature, this CAREER project develops a research
program based on a continuum viewpoint of a network of sensor nodes --
where individual node properties aggregate, and manifest only as
random fluctuations in an underlying continuous medium. By introducing
techniques from statistical physics, this proposal develops a
framework for sensor network algorithm design and architecture. This
is applied to obtain basic insights, and develop algorithms for sensor
network communications -- from network protocol primitives such as
querying, flooding and route setup, to data flow path optimization, to
the interactions of multiple data flows over wireless media, and their
impact on topological properties.

Research results impact design methodology for a wide range of sensor
network applications, and are incorporated into the undergraduate and
graduate curricula at UT Austin. The results are easily accessible to
industry through the Wireless Networking and Communications Group
industrial affiliates program at UT Austin. A network testbed that
integrates actual network hardware with analytical network models has
been prototyped to measure and validate sensor network algorithms, and
furthers outreach efforts to high school students.